Fine Scale Structure of the Upper Mantle Using Array Technologies

The internal boundaries (seismic discontinuities) of Earth's upper mantle down to
depths of the mantle transition zone at 700 km contain important information about
the thermal, compositional and dynamical state of the Earth's interior. High resolution
studies of this region of the Earth provide important constraints on the internal works
of this planet. Most upper mantle and transition zone studies image structure at
intermediate to long wavelength (500 - 1000 km), thus lacking resolution to study
structure at shorter scales (10's km or less). This proposal focuses on using seismic
array data and array processing technologies to improve fine scale resolution of this
region. A seismic array is a seismometer network that permits analysis of Earth
structure though time series stacking to enhance signal to noise ratios of coherent
arrivals over incoherent energy. Improved signal to noise ratios allows studying Earth
structure at short scale lengths. Arrays permit measurement of the incidence angle of
the wavefield, therefore allowing better phase characterization and identification.
Using data from two arrays located in Australia (Warramunga Array) and India
(Gauribidanur Array) we target three main objectives: 1) Resolving fine scale
structure of the 410-km and 660-km discontinuities through array analysis of the Pwave
triplication beneath Australia and India; 2) Studying the nature of the 210-km
discontinuity beneath oceanic regions using PP scattering; 3) Detection,
characterization and modeling of reflectors in the uppermost lower mantle through Pto-
P and S-to-P reflections and conversions. Using a large dataset including hundreds
of earthquakes recorded at the two arrays will give us an unprecedented resolution
beneath northern Australia and beneath north and northeast India. The higher
resolution will facilitate a more direct comparison to mineral physical and
geodynamical implications including the distribution of water in the mantle, key
features of the mantle transitions zone discontinuities (thickness, seismic velocity
gradient, and discontinuity sharpness), the presence or absence of an intermediate
depth discontinuity at 520-km and the existence of partially molten material above
410-km depth.